Small Grant for Exploratory Research: Non-Newtonian Stabilizing of Liquid Membranes for Separation Processes without Sacrificing Permeability

Surfactant-stabilized emulsion liquid membrane process constitute a potentially important emerging separation technology for separating many toxic substances down to very low levels. In this project, a new idea is studied, namely the use of non-Newtonian hydrocarbon membranes. Such membranes are designed to have a dilute solution of a nonionic polymer in a low-viscosity hydrocarbon. This polymer induces high viscosity without decreasing the diffusivity of substances through the solution. If successfully, such membranes could lead to commercial separation processes involving liquid membranes, since less stabilizing surfactant will be needed. A detailed experimental plan is implemented to examine the effects of polymer concentration, surfactant concentration, stirrer speed, aqueous oil rate, and other important parameters. Separations of phenolic compounds and various metal ions are mainly studied.